High School Teacher Summer Research Fellowships

This program provides opportunity for high school biology teachers to spend a summer doing research, full-time, in the laboratory of a member of the American Society of Biochemistry and Molecular Biology (ASBMB). This nationwide program emphasizes the identification and selection of highly motivated teachers who will return to their home schools and have a continuing impact on the quality of science education through the implementation of innovative topics and hands-on exercises. Emphasis is placed on the recruitment of teachers from schools that serve large numbers of minority students. On the basis of previous experience, it is anticipated that this program will have an impact on science education at the secondary level and have at least an indirect impact on career choices made by some secondary students. Cost sharing equals 180 % of the NSF award.